Three Dimensional Reconstruction of Images of Interior Objects Using X-rays and Large Area Detectors

Computed tomography is a technique for reconstructing the interior of an object from measurements of its projections, and is increasingly being applied in research and in non-destructive evaluation of industrial objects. Classical applications are to medical imaging. To handle the increased spatial resolution and other requirements of these new applications, computed tomography scanners may be able to use area detectors instead of the single line detectors normally used. Phase I of this project is to develop, using Fourier techniques, an efficient and accurate reconstruction algorithm for area detectors. Phase II efforts would be toward a digital hardware implementation of the algorithm that can be incorporated in a commercial image processing work station.